A Buoy Mounted Wind Profiler for Remote Measurement of Ocean Winds

This proposal describes plans to fabricate and test a buoy mounted radar (915 MHz) wind profiler for remote sensing of the marine boundary layer. During Phase I the PIs solved a variety of technical challenges, including the development of two algorithms to compensate the radar for buoy motion; development of a novel antenna design to achieve multiple beams and low sidelobes from a single, planar aperture; and development of a radar capable of unattended operation for periods of several months, using only solar cells, storage batteries, or a small propane generator. The PI requests funds to develop a prototype of all profiler subsystems, testing the prototype system at sea under a variety of weather conditions, validating the performance of the prototype system using balloon launched radiosondes, and marketing the MBL Profiler in at least two configurations.